Teacher Enhancement to Reform Mathematics (TERM)

ESI-9814003 Horack This planning grant, which is part of a joint National Science Foundation and U.S. Department of Education K-8 mathematics initiative, will focus on developing a plan to improve the teaching of mathematics in grades K-12 students in the Tucson Unified School District through a collaborative effort by resource personnel, teachers administrators, parents, community/business members, special populations experts, and the University of Arizona. To provide ongoing district wide professional development & community support for reform-based mathematics, an eighty member Teacher Cadre is train to both improve the mathematical pedagogy of mathematics teachers and foster community support.